The Analytic Theory of Division Fields and Spectral L-functions

Abstract for award DMS-0355564 of Duke

Duke and his students will work on two broad sets of problems:
to develop the analytic theory of division fields of elliptic curves and abelian varieties
and to understand the number-theoretic significance of special values
of spectral L-functions and their derivatives.
The first part may be described as ``nonabelian" analytic number
theory and is motivated by applications to the mod p reductions
of elliptic curves and abelian varieties. So far progress has been
possible assuming the Generalized Riemann Hypothesis (GRH), and
its removal it one of the many challenges.
The second part is motivated by some analogies Duke has observed
between the generation of number fields by units occurring as
special values of derivatives of L-functions (e.g. the ``Stark
conjectures") and the special values of derivatives of L
functions associated to Riemann surfaces.

A general goal of the proposal is to extend the reach of analytic number theory,
both within number theory at large and also within mathematics
more generally. It has become evident over the last
few years that the techniques of analytic number theory have a
much broader applicability than was earlier appreciated.
Such techniques also have potential importance in practical applications,
especially in cryptography and related areas.